Twentieth Southeastern-Atlantic Regional Conference on Differential Equations

ABSTRACT

This award is for the partial support of the Southeastern-Atlantic Regional Conference on Differential Equations (SEARCDE) that has met annually since 1981. This year conference will cover broad range of topics in the areas of ordinary and partial differential equations, numerical methods, inverse problems. The internationally recognized mathematicians: Jerry Bona (Texas A&M), Eric Carlen (Georgia Tech) and James Glimm (SUNY Stony Brook) are invited as plenary speakers. SEARCDE are traditionally providing support to young investigators and women.